Handling Calculus: Math in Motion

The Science Museum of Minnesota will develop, test and disseminate "Handling Calculus: Math in Motion." At the heart of "Handling Calculus" is a set of model exhibits and accompanying programs designed to introduce museum visitors to calculus through interactive physical models that illustrate mathematical concepts both kinesthetically and conceptually.

The project focuses on three central concepts: (1) how graphs show changes in rates; (2) how summing quantities over time (integration) can provide important information about results of a process; and (3) how the use of parametric functions can provide a simple way to describe a complex motion.